A Modified Sliding Mode Control for a Class of Non-Affine Systems

9813260 Ro This project is aimed to provide a general framework to achieve robust control of class of systems that are nonlinear and non-affine in the input. Other additive mechanical nonlinearities can also be included. The framework allows to cover a wide variety of computer controlled mechanisms, including electromagnetically driven systems, underwater ROV's (Remotely Operated Vehicles), and automobile suspension control systems. To achieve this goal, the research will be divided into three separate tasks,(i)formulating a modified sliding condition and an equivalent control action for non-affine systems with smooth and invertible input nonlinearities, (ii) evaluating the proposed scheme using a specific example of magnetic servo levitation, and (iii) extending the concept to non-affine systems such as underwater vehicles and automobile suspension systems. The impact of the proposed work is expected at two levels: First, a vast number of mechanical systems that involve (a) computer control of electromechanical systems, and (b) nonlinear activation forces that can be modelled by memoryless nonlinearities, can benefit from this work. Second, the proposed framework can open doors to the development of a more advanced sliding mode control scheme for non-affine systems with nonlinear actuator dynamics. ***